Image Processing for Teaching: Faculty Development and Curriculum Materials

Image Processing for Teaching (IPT) brings a powerful technology to schools and two-year colleges, where students use this state-of-the-art tool for exploration and analysis, learning problem-solving skills, computer and imaging technologies, and specific image processing skills, which are becoming increasingly important in the modern work place. IPT's past success at exciting students about science and mathematics, bringing inquiry and discovery-based learning to students of all ability levels, has created considerable demand for implementation in vocational/technological education settings.The IPT project produces curriculum materials targeting technological education programs. We design and conduct workshops to provide the teaching staff development necessary for successful implementation. IPT further supports implementation with follow-up services, including toll-free telephone and e-mail communication, an annual conference, and periodic video conferences. Our team of expert teachers play a primary role in all planning, development, and instructional activities. The stream of interdisciplinary activities, keyed to occupational clusters, will keep instructors and their students on the cutting edge of technology, while using a demonstrated powerful tool for learning.